Software Instrumentation Development and Computer Hardware for Bioacoustic Research

Funding for software development for bioacousitc research is requested. A diverse research group will perform bioacoustic research in such areas as bird vocalizations, elephant vocalizations, and human linguistics. A common theme found in the proposals is the analysis of the structure of acoustic signals. The advances proposed include: real-time display of the signals together with audio reproduction, signal analysis, editing capability and interchangeable modules capable of handling the various modes of differing projects.